Detection of Sunlight-induced Thymine Dimers in Sea Surface Microbial Communities

Stratospheric ozone depletion in polar regions is of scientific and public concern because ozone absorbs ultraviolet radiation from the sun. UV-radiation causes DNA damage. Dr. Yayanos proposes to quantify the effects of increased solar UV-radiation at the sea surface. He will develop methods to measure the amount of thymine dimers, one of the main photoproducts formed in DNA, in sea surface microbial communities. In addition, attempts will be made to show that there is a variation in the level of thymine dimers on a diel basis. The concentration level of thymine dimers in the sea surface microbial community may be useful in developing a global model of ecosystem damage resulting from stratospheric ozone depletion. Furthermore, if the high performance liquid chromatograph method or the method based on DNA processing enzymes works for detecting thymine dimers, then it would allow for the search for thymine dimers buried over geological time in sediments and in ice. The pilot studies proposed will be conducted on samples collected from southern California coastal waters.